Femtosecond Processes in Transition Metal Photochemistry

This research, in the Experimental Physical Chemistry Program, uses laser techniques to probe the spectroscopy, kinetics and dynamics of metal inorganic compexes on the femto-, nano- and picosecond time scales. Such studies are important to inorganic and biochemial processes. The dynamics of excited electronic states and photochemical reactions in transition metal compounds at short times in the subnanoseceond and femtosecond time scale will be investigated. This research will study charge transfer excitations, conformational relaxation of molecules following such processes, nonradiative transitions to lower lying states of various types, and solvent reorganization around solutes undergoing charge transfer transitions all of which require this time resolution.